Mathematical Sciences Scientific Computing Research Environments

The Center for Applied Mathematics at Cornell University will purchase computer equipment which will be dedicated to the support of research in the mathematical sciences. The equipment will be used for several research projects in mathematics, including in particular: Stochastic spatial models in the biological sciences Computational analysis of dynamical systems Computational research in coding theory Computational Algebraic Geometry Computation of Eigenvalues and Applications